Multi-Linear Singular Integrals

Over the past two years I have been working on multi-linear
singular integral operators. Recently, in a joint work with T.Tao and
C.Thiele we generalized the previous results on the bilinear Hilbert
transform to the case of multilinear operators with much more singular
symbols.
The striking fact about these developments is that it seems that these
techniques could have a very nice and important application to the
spectral theory of Schroedinger operators.
The final goal of our project, is to show that for the classical
Schroedinger operators with square integrable potential and for almost
every positive eigenvalue, their corresponding eigenfunctions are bounded.
The answer to the above conjecture would imply a better understanding
of the behaviour of the Schroedinger operators, which lie in the heart of
Quantum Mechanics.